Conference "From Dynamics to Complexity"

This award provides funding to help defray the expenses of participants, especially women, graduate students, postdocs, and junior faculty, in the "From Dynamics to Chaos" conference that will be held from May 7--11, 2012, at the Fields Institute for Research in Mathematical Sciences in Toronto, Canada.

This conference will cover a variety of topics in analysis (e.g., dynamical systems, complexity theory, mathematical physics), with partially hyperbolic dynamics serving as a key unifying theme. All of the conference topics are central to analysis and extremely active subjects of current research. The format of the meeting is such that young people will have ample opportunities to speak and be otherwise engaged in the various conference activities.